Logical Foundations for Inheritance Theory and Knowledge Update (Computer and Information Science)

Continuing research that has been supported since April, 1986, under NSF Grant No IST-8516313, we are extending and deepening our investigation of interactions between logical theory, on the one hand, and inheritance and knowledge update in semantic networks on the other. The research consists of both theoretical work and experiments on implementations, and includes a number of interrelated projects: (1) Logic analysis of knowledge update as applied to semantic networks; we will continue to explore the theory of conditional logic as a framework for dealing with knowledge update in semantic networks, and to compare the resulting accounts of update with those proposed by other computer scientists and logicians. (2) Articulating the design space for nonmonotonic inheritance reasoners; building on our foundational investigations, we will begin to work toward a mathematical classification of nonmonotonic inheritance reasoners, and to establish some general theorems in this area. (3) The theory of nonmonotonic inheritable relations and roles; we will extend our analyses of inheritance in nonmonotonic semantic networks to richer network representation languages, including at least the resources for describing relations and roles. (4) The theory of mixed semantic networks; we will extend our analyses of inheritance to semantic networks in which both strict and defeasible information is mixed together in a single representational structure. (5) Nonmonotonic hybrid reasoners; we will explore validated systems that employ both nonmonotonic network-based reasoning and theorem proving in information retrieval. The broader significance of this work is that it addresses the urgent need to design mechanical systems capable of intelligent reasoning in a variety of expert tasks. Such systems will need to store large quantities of complex information in a form that is efficiently accessible by mechanized reasoning processes, and also structured in a way that is intelligible to domain experts so that it can be validated and improved. Research in Artificial Intelligence has shown that there is a conflict between two desirable goals for systems of knowledge representation: they must be powerful enough to express complex concepts, but at the same time they must reason quickly and allow efficient updates. Designing computer systems that can meet both of these goals constitutes a large-scale research project; new theoretical concepts and experiments with working reasoning systems must both be developed. Our project will combine theory and experiments to produce systems of knowledge representation and knowledge update. The dual approach will produce knowledge and reasoning systems which not only work better, but which are grounded in a sound theoretical analysis.